2008 Summer School in Statistics for Astronomers; June 9-14, 2008; Pennsylvania State U., College Park

AST-0808877
Babu

2008 Summer School in Statistics for Astronomers; June 9-14, 2008; Pennsylvania State University, College Park

Observational astronomers continually confront a wide range of challenging statistical problems. Due to the structure of undergraduate and graduate curricula, U.S. astronomers are not well trained in statistics, and most of them learn elementary methods through books written by and for physical scientists. Advanced methods are badly underutilized: statistics is an available technology that should be tapped to advance the needs of astronomy and astrophysics. The 2008 Summer School for young astronomers in statistical inference at an intermediate level helps to alleviate this educational gap, continuing the intensive week-long Summer Schools in Statistics for Astronomers, initiated in 2005 by the group at Pennsylvania State. The school gives a broad exposure to fundamental concepts and a wide range of resulting methods across many fields of statistics. Experienced statistics professors will teach an innovative curriculum, accompanied by software tutorials with applications to astronomical datasets. This will have a substantial impact on the training of many young researchers.